Crystal Aging, Crystal Habit and Crystal Purification

The aging of crystals--i.e., the structural changes which occur in crystals after nucleation and growth have occurred--will be studied. During aging, recrystallization occurs rapidly in imperfect crystals of sparingly soluble materials resulting in significant changes in crystal habit and purity. In this study, the aging of terephthalic acid crystals in water, acetic acid, and DMSO will be experimentally examined. Theoretical studies to attempt to predict the aging rate, mechanism, and final crystal shape and purity also will be conducted.